Collaborative Research: I/UCRC: Ceramic and Composite Materials Center

The Industry/University Cooperative Research Center for Ceramic and Composite Materials has met the program criteria over their first five year period. The Center's research now spans synthesis processing, microstructural characterization and properties from nanometer through the micron scale. The Center has added three new thrust areas, 1) ceramic armor materials; 2) catalysis and; 3) electrochemical and energy related materials.